Computer Systems Manager for the Earth Sciences Board and Institute of Tectonics: Phase II

9419142 Lay This award provides partial funding for a technical support position in the Institute of Tectonics and the Earth Sciences Board at the University of California, Santa Cruz. The primary impact of the position (Computer Systems Manager) will be on computer-intensive geophysics research programs in the Crustal Imaging Laboratory, the W.M. Keck Seismological Laboratory, and the Earth Sciences Visualization Laboratory, all of which are maintained by the Systems Manager. ***